Assistance for Building Capacity (ABC)

This design study proposes to assemble a, think tank, of expert consultants, review MSP projects and suggest a new set of tools for the MSPs that will build capacity to use qualitative and quantitative data for monitor and modify their implementation plans, promote equity and diversity, and create models that help MSP partners understand the focus of reform and the impact of the evolving partnerships on their institutional cultures, programs, and structure.